The Development of an Innovative Model to Enhance the Knowledge and Skill Levels in Basic Sciences for Secondary Agriscience Teachers

This proposal provides a plan for enhancing the level of knowledge and skills in basic science for 75 secondary agriscience teachers. The project is for three years and will include the following: development of a yearly summer institute in basic and applied science concepts; the methodology of teaching science; and curriculum materials development designed to integrate the scientific concepts and teaching methodologies of the institute. Cost sharing is equivalent to 51% of the NSF award.